REU Site: Research in Consumer Networking Technologies

This funding renews a Research Experience for Undergraduates (REU) Site at the
University of Missouri – Columbia. Undergraduate students will investigate a variety of interesting and
challenging problems that involve consumer networking applications and services that are of significance
to the economy and quality of life in areas such as social computing, health care, and public safety. The
students will participate in the faculty mentors’ on-going funded research, investigate technically
challenging issues and develop viable solutions and insights. They will participate in professional
development activities to prepare them for future graduate studies and a broad range of emerging
computing careers. The site will focus on recruiting students from non-PhD granting institutions with
particular emphasis on institutions in and around the state of Missouri.

The intellectual merit of the project rests with the leadership, an experienced research group with
excellent expertise and experience in the research area. The research will focus on broad topics such as:
software-defined networking/virtualization, visual cloud computing, immersive learning with virtual
reality, mobile sensing and environment recognition, securing networked consumer applications, and
application-aware network performance optimization. The research activities will lead to a better
understanding of the multitude of efficiency, performance, reliability, scalability, and security issues and
tradeoffs in consumer networking technologies and related applications. Advanced networking
environments and software developed in the previous REU site programs as well as novel testbeds such as
the Missouri University Science DMZ (demilitarized zone) environment, NSF-supported
CloudLab/FABRIC and Mizzou CAVE, smart device equipment, and sensor-based monitoring will be
leveraged by the participating students in hands-on experiments within their research projects.